AIT (U.S.) - CCNAA (Taiwan) Cooperative Research: Soluble Model in Statistical Physics

This is a three year cooperative project proposed by Dr. Fa Wu, Northeastern University, and Professors Lin Keh-Ying, National Tsing Hua University and Hu Chin-Kun, Academia Sinica. This study plans to develop models of critical point phenomena and phase transitions in condensed matter physics. Results of this research can improve our understanding of the critical point phenomena such as freezing and magnetization occurring in materials research. This project is jointly supported by the AIT (U.S.) - CCNAA (Taiwan) Cooperative Science Program, NSF and the Taiwan National Science Council.